Hafnium Isotope Structure of the Mantle Beneath the Western United States

Primary goal is to use Hf isotope ratios to determine the extent and timing of High Field Strength Element (HFSE) depletions in the astenospheric and lithospheric mantle beneath the western U.S.A. These depletions are common in many mafic lavas. Mafic magmas derived through melting of shallow mantle, such as continental basaltic magmas derived from the lithosphere, are the most likely candidates to have high 176Hf/177Hf ratios; these would stand in marked contrast with low 143Nd/144Nd ratios of what is often considered to be the subcontinental lithospheric mantle. Initial results from the Rio Grande rift region indicate that both high and low 176Hf/177Hf mantle exists beneath the rift. This study will include work in four areas that encompass a wide variety of isotopic and chemical composition of the underlying mantle. Epsilon Nd values for primitive Cenozoic lavas from the western U.S. span almost 20 units indicating complex interaction between multiple sources. The Hf isotope compositions of these sources, however, are largely unknown.